A Comprehensive Data Base for Science Indicators--A Feasibility Study

This is a supplement to a grant to assemble, publish, and disseminate a sourcebook of findings from a research project previously funded by NSF. The project was to design and develop a statistical system and comprehensive data base to provide annual indicators of the quantity and quality of science and engineering students. The sourcebook will contain information that will reflect twenty.five years of experience with large educational data bases, beginning with Project TALENT in 1960 to the conclusion of High School and Beyond (HS & B) in 1984. This book will be "must reading" for future researchers proposing to use data from two or more data bases, especially those from the National Assessment of Educational Programs (NAEP), the SAT Program, the National Longitudinal Survey of 1972 (NLS), HS & B, or Project TALENT.